Computer-Aided Conceptual Design of Engineering Systems

This award is for the development of a computer program for use in the beginning stages of the design process. The program will lead the user through problem definition and conceptual design. Being general in nature, it will help in the development of products and processes based on mechanical, electrical and other physical effects. The program will contain the following data bases: Questions and data for specification lists, functions for generating functional block diagrams, and solutions to satisfy the functional requirements. The user will be able to add new functions and solutions, thus continually increasing the program's knowledge base. The procedures are based on the systematic design technique which has proved itself to be a rational method for developing new and improving existing products and ensures that design proceeds without prejudice and no unusual solutions are overlooked. The method progresses in a scientific manner and leads to several concepts for fulfilling a given task, which are then evaluated and ranked. The final product of the program will be a functional schematic of the product/process showing a pictorial view of its parts which are drawn from the solutions data base.